Experimental Investigations of the Immiscible Flow of Water,Trichloroethylene (TCE), and Air Through Porous Media

Research is conducted on the characterization of the contamination of groundwater by fluids that are immiscible in water. Current efforts toward modeling groundwater contamination by an immiscible fluid are severely hindered by the paucity of available data on the relevant saturation-pressure-permeability relationships. They are similarly restricted by the lack of experimental data for model validation. Two alternative methods are examined using specially designed laboratory equipment for simultaneous determination of saturation pressure and permeability.